Spectral and Broadband Albedo of Antarctic Sea-ice Types

The albedo, or reflection coefficient, is a measure of the diffuse reflectivity of an irradiated surface. With the sunlit atmosphere as a light source, and sea-ice as a diffuse reflecting surface, the albedo would be the fraction of incident light that is returned to the atmosphere. A perfect (white) reflecting surface would have an albedo of 1; a perfect (black) absorbing surface would have an albedo of 0. The albedo of sea-ice is needed to assess the solar energy budget of the marginal ice zone, to compute the partial solar bands in radiation budgets in general circulation and earth system models, and is also needed to interpret remote sensing imagery data products.
Applications requiring albedos further into the near IR, out to 2500nm, are assumed or approximated. Modern spectral radiometers, such as will be used in this campaign on a Southern Ocean voyage from Hobart to Antarctica, can extend these measurements of albedo from 350 to 2500nm, allowing earlier estimates to be verified, or corrected.

Surfaces to be encountered on this research cruise are expected to include open water, grease ice, nila ice, pancake ice, young grey ice, young grey-white ice, along with first year ice. The presence of variable amounts of snow on these surfaces is also of interest. Light absorbing impurities in the snow and ice, including black carbon and organic matter (brown carbon) are different from those found in Arctic Sea ice, the Antarctic being so remote from combustion sources. This may allow better understanding of the seasonal cycles, energy budgets and their recent trends in spatial extent and thickness. The project will also broaden the educational experiences of both US and Australian students participating in the measurement campaign